Dissertation Research: Factors Influencing Evolutionary and Ecological Patterns of Body Size in North American Freshwater Fishes

0073156
Page
This research examines patterns of body size in North American freshwater fishes at evolutionary, and regional and local community levels. Ecological and other factors related to observed patterns will be identified. Preliminary results contradict patterns commonly seen in paleontological studies by describing an evolutionarily decreasing trend in body size in seven of nine families of fishes. Preliminary analyses of regional communities indicate that body size increases with latitude. Results of this research will lead to a much better understanding of the factors responsible for variation in body size and are likely to be applicable to other groups of organisms.